Mathematical Sciences: Location of Outliers in Structured Data

The principal investigator will study the detection of outliers in structured data. Outliers are observations which appear different from the bulk of observations. It is known that many parameter estimation procedures fail to produce good results when outliers are present. In light of this, one method of handling outliers is to initially detect their presence. The investigator will continue to study this detection problem based on the elemental sets procedure, which involves fitting to the data many models, each an exact fit to a minimally-sized subset of the original data. Combining the information from these elemental sets in suitable ways, one may identify the multiple outliers reliably, and in a single pass.